Improved Perfluorocarbon Microcarriers Used for Cell Culture

Recent studies with microbial systems have shown that perfluorocarbon (PF)-emulsions can increase the oxygen transfer rate and increase the growth and/or amount of harvested bioproduct. More recently, attempts have been made to develop useful PF microcarriers using F-emulsions. These microcarriers provide an enormous increase in surface area. It has been known for some time that anchorage dependent cells grow well on fluorocarbon surfaces. A new technique has been developed by DuPont that makes it possible to fix specific proteins to a fluorocarbon surface. This technique has the potential to provide droplets with important and specific factors necessary for different cells to adhere to a surface, and makes it possible to provide better aeration. The PIs have done some preliminary studies using a purified fraction of high molecular weight gelatin, bovine serum albumin (BSA) as a model protein, and perfluorodecalin as the recipient fluorocarbon. Gelatin has been successfully tested for growth with BHK cells. This project will be directed towards purifying the perfluorodecalin, preparing beads that are more stable, and conducting preliminary oxygen mass transport studies. Successful completion of this project will open the way to developing PF microcarriers with special adhesion factors, and optimal gas exchange for cells adhering to the PF microcarriers.